Mathematics for the '80's -- Math Six

The Agency for Instructional Technology, in partnership with a consortium or more than 25 state education agencies, is in the process of developing Mathematics for the '80s, a collection of high-quality video and print materials that support mathematics teaching in grades 4-6. Materials for grades 4 and 5 have already been developed. This grant will provide partial support for the development of the grade 6 materials. The project will develop a series of eighteen 15-minute instructional television programs, together with a teacher's guide that will include worksheets for students. The series will emphasize problem-solving and applications. Consortium agencies will distribute the materials within their states, via public and non-commercial cable television transmission, for example, and they may authorize off-air recording of the television programs and duplication of print materials for educational use within their legal jurisdictions. Nonconsortium agencies will offered an opportunity to contract with the Agency for similar rights.